Germanium Photon Detector for X-Ray and Gamma-Ray Spectroscopy

9451606 Campbell A high-resolution germanium photon detector and associated electronics will be acquired for use in a variety of experiments in the advanced undergraduate laboratory as well as for independent studies. Among the experiments to be done are the study of characteristic x rays from various elements, determination of gamma-ray absorption coefficients, gamma-ray spectroscopy of radioactive isotopes from environmental sources, Compton scattering, and neutron activation. These experiments will give undergraduate students hands-on experience with radioactivity and with modern high-resolution spectroscopy applied to x rays and gamma rays.